RUI: Regulatory Volume Decrease by Amphibian Red Blood Cells

Abstract 9603568 Light Water flows freely across the plasma membrane, so any changes in extracellular or intracellular composition that alter the thermodynamic equilibrium will elicit movement of water, and change cell volume. Since animal cells cannot maintain hydrostatic pressure gradients across their membranes, they would quickly lyse without the operation of compensatory mechanisms that limit cell swelling. Exposure of animal cells to a hypotonic solution results in an initial increase in cell size, followed by a slower, spontaneous regulatory volume decrease (RVD) close to the original size. This compensatory response results from a swelling-induced increase in membrane permeability to intracellular solutes, thereby decreasing the driving force for water influx. Although the general features of RVD have been described, the details of the cellular mechanisms that underlie this process, especially the regulation of ion channels, are largely unknown. The specific objectives of this grant are to characterize the properties and regulation of potassium channels involved with RVD, and to examine the signal transduction and intracellular mechanisms that regulate RVD. These studies will be done on the Necturus maculosus (mud puppy) red blood cells. These cells have a great ability to regulate their volume in hypotonic media, and this process depends on ion channels and intracellular messengers. Osmotic fragility and cell volume will be measured, and ion channels will be studied by the patch clamp technique. These studies will increase our understanding of the transduction step between cell swelling and ion efflux, and provide insight on the properties and regulation of ion channels used for RVD. Since cell membranes are freely permeable to water, they need to regulate their volume in dilute solutions. When exposed to large volumes of water or very dilute solutions cell show an initial increase in cell size, and then a regulatory volume dec rease (RVD) to their original size. This grant will study the mechanism of this process, by studying the regulation of ion channels involved. ***